Improving Earth Science Education Through Teacher Development in Regional Geology

The goal of this proof-of-concept proposal is to revise and document the effectiveness of a teacher-friendly regional geology field guide. This revision targets Earth Science teachers with limited geological background knowledge, and will enhance teachers' capacity to 1) provide local and regional examples for geology/earth science concepts and 2) facilitate the delivery of inquiry-based earth science instruction as outlined in the National Science Education Standards. The teacher-friendly field guide/inquiry materials will be adapted from the "Northeast Geology Field Guide" and developed through a summer institute format with teachers. Impact of the guide's ability to foster inquiry teaching and learning will be assessed employing a video-based analysis grounded in STAM (Secondary Teaching Analysis Matrix).